Thermohydrodynamic Study of Journal Bearings

This project provides for class VI computer time to be used by a researcher conducting tribology research. The two projects are related to the thermodynamic analysis of liquid-solid lubricated journal bearings and the study of oil-film whirl in journal bearings.